Interactive Multimedia Instruction for Advanced Instrumentation Technology

Interactive multimedia instruction (IMI) is known to be an effective method of delivering technical skill instruction to learners across many educational areas. This project merges the Instrument Society of America's INVOLVE IMI system with the current Electronics program to provide a specialized Associate of Applied Science instrumentation curriculum. The principal aims of the project are to increase the number of instrumentation career seekers, build education pathways from high schools through four-year and higher education in partnership with industry, train a more culturally-diverse and gender-balanced work force and improve learning efficiency. The project will produce highly skilled individuals able to track the process control industry's transition into the evolving automated workplace of tomorrow.